Presidential Young Investigator Award: Engineering Design Database Research

This research seeks to obtain a representation and control mechanism that accurately represents an entity, design, or process; permits intelligent external interaction; ensures integrity and consistency through the evaluation and satisfaction of engineering constraints; and actively contributes to its own evolution by generatively increasing its knowledge base. The results of this research program will directly contribute to the understanding of the use of database theory for representing engineering information. This understanding is expected to lead to the development of expert systems that enhance monitoring and control of the engineering process and improve data management efficiency while providing up-to-date information in a variety of forms to those who need it, allowing them to respond quickly to changes in anticipated patterns.